NSF-SNSF: Theory and tests of microbiome feedback: applications to understanding plant community structure and implications for ecosystem function

The resilience of terrestrial ecosystems to perturbations, like drought or intense precipitation or species loss, depend upon forces governing the structure and function of plant communities. The soil microbiome, which includes pathogens and beneficial microbes has been found to be an important moderator of ecosystem stability. Specialist pathogens can reduce plant productivity, particularly in low diversity systems, but dilution of pathogens can determine productivity benefits of plant diversity. Pathogens can also determine patterns of plant diversity. In contrast dynamics of beneficial microbes, including mycorrhizal fungi, can influence changes in plants species over time, support that survivorship and long-term growth of plants and mediating plant resilience to disturbance. The proposed study will identify the extent to which these groups of soil microbes influence the composition and productivity of plant communities. Results from this project will inform efforts to produce beneficial bio-inoculants that could improve crop yields, and restore ecosystems that have been negatively impacted by disturbance. This project will also generate improved materials for secondary education. This project advances NSF’s priorities in Biotechnology and Artificial Intelligence.

This project will develop and test theory evaluating the influence of soil microbiome feedback and competition on plant species coexistence, how soil microbiome feedbacks drive multi-species plant community structure and productivity, and how the impact of soil microbiome feedback is affected by changing environmental conditions. The project utilizes ten years of data on plant productivity, plant composition, and soil microbiome composition within a field manipulation of plant diversity and precipitation. The project integrates these large data sets with theory through innovative applications of computational and artificial intelligence modules including simulated annealing. Together the project advances understanding of drivers of rangeland productivity and the potential of beneficial bioinoculants. The project will develop, implement and distribute STEM educational resources for middle and high school students.

This collaborative U.S.-Swiss project is supported by the U.S. National Science Foundation (NSF) and the Swiss National Science Foundation (SNSF), where NSF funds the U.S. investigator and SNSF funds the partners in Switzerland.